REU: Cellular and Molecular Approaches to Biological Processes

9322143 Sheffield This award provides funds to the Biology Department of Temple University to continue a successful REU site for a combined academic year and Summer program of undergraduate research. This program will draw on experience as an REU site awardee for previous years, and also incorporates elements of other Temple programs. It is the goal of this program to provide a rich research environment and a sense of community among promising students in order to encourage them to enter careers in the biological sciences. The program is designed to help students develop self confidence that will allow them to progress from dependence to independence in research. The Biology Department at Temple University is in a unique position with respect to biological research and education of underrepresented groups. As a department in a major research university, they have an active faculty and substantial grant support. At the same time, Temple, as an urban university, attracts a diverse student population. Many of the students are the first in their families to attend college. Temple was found that a large number of these students have not considered a career in research despite their abilities. and can benefit significantly from a program such as this. ***